Canonical Matrices and their Miniversal Deformations

The objective of the cooperative research project is to apply categorical
methods of modern representation theory to classification problems of
linear algebra. Professors V.V. Sergeichuk (Ukraine) and R.A. Horn
(Utah) will develop a universal method for reducing the problem of
classifying systems of forms and linear mappings to the problem of
classifying systems of linear mappings, and will apply this new method to
known canonical form problems. They will also give miniversal
deformations of the canonical matrices that they obtain; that is, they
will find a simplest possible normal form, to which not only a given
matrix, but also an arbitrary family of matrices close to it, can be
reduced by means of an admissible transformation that depends smoothly
on the entries of the matrix entries.

Elaboration of general methods for solving classification problems of
linear algebra is of great practical importance since matrix problems
underlie most methods of modern computational mathematics. Students in
science and engineering first meet matrix problems when they study
systems of linear equations. An investigation of miniversal deformations
of matrices is important for applications in which one has matrices that
arise from physical measurements, which means that their entries are
known only approximately. Thus, one is compelled to study the structure,
not only of a given matrix, but also of all matrices close to it.